Curriculum for an Undergraduate Program in Data Sciences - CUPIDS

Computing - Other (35)

This project increases student understanding of the role that data plays across the sciences as well as increasing student ability to use the technologies associated with data acquisition, mining, analysis, and visualization. This project: (1) teaches students what Data Sciences is and how it is changing the way science is being done across the disciplines; (2) changes student attitudes about using computers for scientific analysis and improves their confidence in using computers to solve scientific data problems; (3) increases student abilities in using visualization to examine scientific questions; (4) increases student abilities to use databases for scientific inquiry; and (5) increases student abilities to acquire, process and explore experimental data with the use of a computer. The objectives for this project are achieved within a new Bachelor of Science degree in Computational and Data Sciences. As part of this project, four new courses within this degree program are being created and their effectiveness evaluated.